Research Experiences for Undergraduates at the University of Maryland

Dr. Philip DeShong and other members of the Chemistry Department of University of Maryland are being supported for a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, eight undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry. A unique feature of this program is targeting of schools within a 200 hundred mile radius with special emphasis on women and minorities.